Seasonal Changes in Foraminiferal Flux and Shell Chemistry in the Northern North Atlantic

The project will measure the seasonality of foraminiferal production at high latitudes. The samples will be collected in a time-series of sediment traps in the North Atlantic and Norwegian-Greenland Sea near the present site of North Atlantic Deep Water formation. A two year record of productivity and shell chemistry (stable isotopes) will be compared to real-time observations of surface water hydrography and chemistry in order to calibrate the foraminiferal record of paleo-environmental conditions. %%% The shells of microscopic organisms in the northern North Atlantic and Norwegian-Greenland Seas will be collected with sediment traps for two years. The chemistry of the water will be measured during the same time period. The results will allow the researchers to calibrate the modern chemistry of these water with the chemistry of foraminiferal shells which are preserved in the geologic record. This calibration is important because the study area is the site of the formation of North Atlantic Deep Water; this water mass plays an importnat role in the climate history of the earth.